Ordered Mesoporous Materials with Closed Pores

NON-TECHNICAL DESCRIPTION: A grand challenge in materials chemistry is to control the structure and properties of materials at nanoscale. One of the focal points in the effort to meet this challenge is the ability to introduce well-defined nanoscale voids (pores) in the structure of materials. While the last two decades brought milestones in the design of materials with accessible (open) nanopores, advances in the development of materials with closed (isolated) nanoscale pores were limited, even though the latter materials are of significant interest in electronics industry as low-dielectric-constant on-chip insulating media in integrated circuits. The current project is focused on exploring a predictive way to synthesize closed-pore materials, which is based on the use of surfactant micelles as templates to generate well-defined pore arrays. The surfactant templating has revolutionized the synthesis of nanoporous materials, but because of the need to remove the surfactant template from the pores, it seemed to be inherently suitable for open-pore rather than closed-pore architectures. Recently, the micelle-templating approach to generate closed-pore materials was developed which was based on identifying conditions at which the template is removed before the pores close. The current research effort is focused on extending the scope of this powerful approach on new material compositions and on achieving more beneficial structural properties of the closed-pore materials. Thus, the project will provide a knowledge base for the development of closed-pore materials with designed structures and properties and is expected to benefit a broad range of scientists and engineers that study and apply porous materials. The project involves postdoctoral fellows, graduate students and undergraduate students, with a special focus on minority undergraduate students.

TECHNICAL DETAILS: This work will explore a new and transformational approach to the synthesis of well-defined materials with closed (isolated) nanopores, which is based on recently discovered thermally-induced pore closure phenomenon in micelle-templated mesoporous materials. This process promises to be a predictive pathway for the synthesis of closed-pore nanoporous silicas and is expected to be applicable for organosilicas. Ways to obtain silicas and organosilicas with closed spherical pores of diameter 5 nm or lower, which are most appropriate in applications as low-k materials, are being explored. Materials that exhibit the pore closure at as low temperatures as possible (preferably around 300°C) are sought. Ways to achieve the thermally-induced pore closure with minimized extent of shrinkage will be delineated. Periodic mesoporous organosilicas, which are inherently more suitable than silicas for low-k applications due to their lower bulk dielectric constant, are being explored as closed-pore materials candidates. Ways to increase the pore volume of closed-pore materials, thus reducing the dielectric constant, are being developed. Synthetic pathways to materials with closed cylindrical pores are being explored. The study focuses on samples in powder form due to the lack of readily accessible facilities to characterize thin films, but conclusions of the study are expected to extend to materials in the thin-film form. The project will generate the knowledge base for the synthesis of closed-pore nanoporous materials with tailor-made framework composition, pore size, pore shape and pore volume. This effort contributes to the current quest to overcome limitations in the processing speed of electronic devices by exploring a new avenue to the low dielectric constant materials. The project involves the training of scientists and students in the synthesis and characterization of cutting-edge nanoscale materials.